Research in High Energy Physics

9412313 Bromberg This grant supports a program of research in elementary- particle physics with the inrernational collaboration CDF that studies properties of proton-antiproton interactions produced in the Fermilab colliding-beams accelerator complex. Topics of interest include fundamental quark, lepton and vector-boson properties, and tests of predictions made within the standard-model theoretical framework. Included is support for further development of data acquisition with fiber optics to improve the capability of the complex CDF detection apparatus. ***